Complex Dynamics, Parameter Space, and Immersive Visualization

The main mathematical goal of this proposal is the
study of parameter space for polynomial diffeomorphisms
in the complex domain. In particular, the PI will
consider the complex Henon map. The Henon map is the
simplest model of sophisticated dynamics in two higher
dimension dynamics. With the aid of the holomorphic
structure, complex dynamics can help bridge the separation
existing between theoretical real dynamical systems and
experimental dynamical systems. The proposer plans to
continue studying the structure of attracting orbits.
She will also study the analytical and geometrical
properties of the dynamics that occur in the vicinity of
certain types of bifurcations for complex maps.
The dynamics close to some types of bifurcations
is rich and varied. Strange attractors, infinitely many
basins, and cascade of horseshoes are coexisting and they
are still not well-understood. Gavosto will study these
issues using a combination of analytic tools from several
complex variables and immersive mathematical visualization
techniques. The PI and collaborators will continue to
develop computer visualization tools based on structured
sets of textured surfaces. These tools allow real time
interaction with complicated sets of higher dimensional
data. The PI will incorporate undergraduate and high school
students as research assistants in the visualization of data
from research projects in complex dynamics, mathematical
biological models, and crystal engineering.

The subject of dynamical systems models the evolution of
phenomena that change over time. Numerous algebraic equations
which have no solutions on the real numbers can be easily solved
in the complex numbers. Along the same lines, the study of
dynamical systems using complex numbers adds degrees of freedom
(space dimensions) and permits the visualization of hidden
structures. Theoretical and computational progress in dynamical
systems will permit the decoding of intricate patterns and
chaotic behavior in a variety of applications. The development
of technology in the last decade has produced an explosion of data.
The accurate and relevant visualization of large sets of
data presents many challenges in the mathematical and physical
sciences. New visualization tools will be very useful to help
bridge the gap between disciplines. The outreach activities
involving high school students and teachers in this project will
provide a way to integrate the community into the development of
science and in the understanding of its consequences.
As used in this project, technology is an exceptional medium for
introducing students early in their studies to new areas of
research in math and science. For these reasons, the project is expected
to have a broad multidisciplinary impact not only in the sciences but also
possibly in the way the sciences are taught at the High School level and above. This project is jointly funded by the Office of Multidisciplinary Activities and the Division of Mathematical Sciences of the Directorate of Mathematical and Physical Sciences.